Development of a Distributed Research Environment for Behavioral and Cognitive Science

This project is for the development of a general-purpose Experiment Control computer for use by cognitive and behavioral scientists. It provides for digital process control and data acquisition. It will be a microprocessor-based controller implemented as a high-quality printed-circuit board. The board will be designed to function as a peripheral processor on a network supervised by whatever general-purpose computer the researcher wishes to use. It will provide up to 8 inputs and 40 outputs. Research will be easy to implement by using a simple, easy to learn and easy to use high-level BASIC-like language. The board will be inexpensive and easy to repair quickly. The low cost will make high level research opportunities available to both researchers at prominent universities and to new researchers starting at small underfunded schools. All hardware and software will be placed in the public domain.